Molecular Genetic Analysis of Competence for Genetic Transformation in Streptococcus Pneumoniae 

A study will be made of pneumococcal transformation, a naturally occurring, inducible gene replacement mechanism that is relatively simple and very efficient. Competence for genetic transformation in pneumococcus (Streptococcus pneumoniae) occurs during a brief period of highly specialized protein synthesis, coordinated among all cells of an actively growing culture. During a period of approximately 10 minutes, the competent cells can transport DNA into the cytoplasm, and replace homologous genes in the chromosome very efficiently. Identification and cloning of the genes involved in this mechanism, and determination of their roles, will be carried out with classical techniques, including the efficient gene replacement provided by the natural transformation process itself, in combination with molecular methods in vitro and recombinant DNA cloning in E. coli, to establish the molecular genetics of the system. This strategy uses gene disruption mutations made by insertion of a drug resistance marker that is expressed both in E. coli and in Streptococcus. These studies will identify, clone, and map competence genes of several phenotypic classes, identify gene products, and characterize phenotypes of gene disruption mutants. These clones and maps will be used as tools to study both the genetic exchange mechanism and the control system responsible for the differentiation at competence.